Discrete and Computational Geometry Workshops at MSRI

During the Fall semester of 2003 the Mathematical Sciences Research
Institute (MSRI) in Berkeley, California will sponsor a special program in
Discrete and Computational Geometry. The organizers for this semester-long
program are Jesus De Loera (University of California at Davis), Herbert
Edelsbrunner (Duke University), Jacob E. Goodman (City University of New
York), Janos Pach (New York University), Micha Sharir (Tel Aviv
University), Emo Welzl (ETH Zuerich), and Guenter Ziegler (Technische
Universitaet Berlin). The program will have many activities, including
public lectures, research for undergraduates, mini-courses, weekly
seminars, and three workshops. This award provides funding to help cover
lodging and travel expenses for participants in the workshops.

The Introductory Workshop is designed to introduce a broad range of
computer scientists, mathematicians, scientists working in related fields,
and others interested in the topics of the program to current research in
these areas. The second workshop, on Mathematical Foundations of Geometric
Algorithms, is intended more as a forum for researchers in computer
science and mathematics to discuss their recent work with other active
researchers. This workshop will focus on the design and analysis of
geometric algorithms, and on the mathematical and algorithmic techniques
needed to make these algorithms efficient. The third workshop, on
Combinatorial and Discrete Geometry, will study discrete geometric objects
(polyhedra, geometric graphs, sphere packings, tilings, lattices, and so
forth) and their combinatorial structure, stressing the connections
between discrete geometry and algebra, combinatorics, and topology.

The Introductory Workshop in particular will extend the impact of the
program well beyond the core of recognized researchers in this particular
area. MSRI's Human Resources Advisory Committee established the
introductory workshops in 1992 as a vehicle for making the material of
MSRI's major programs available to a broad scientific audience,
particularly women and minorities who are still much too underrepresented
in the scientific enterprise. Through outreach activities such as a
special weekend on geometry at Howard University in September 2002, MSRI
has recruited participants from underrepresented groups to participate in
its 2003-04 programs and particularly the introductory workshops, and will
work with these participants to help make the material of the workshops
useful for their endeavors at their home institutions. The PI and co-PI
for this grant have already recruited several participants for these
workshops who are from historically Black colleges and universities, and
who have expressed a strong interest in bringing material from these
workshops into contact with students in their undergraduate research
programs and classrooms.